Short Course in Applied Optics for College Teachers

Project Summary: This course presents 25 undergraduate teaching faculty with the principles and applications of optics in engineering. A mixture of lectures demonstrations, hands-on laboratory experiments and projects, represents the core of this proposed enhancement program. Participants will be provided with a prepared set of notes on most topics which will be covered, including Fourier analysis, diffraction theory, interferometry, geometrical optics, fiber optics, holography, photoelasticity, shearography, Moir methods, optical data processing methods, nondestructive testing, and digital image processing. Participants will have intensive work experience with the latest in optical equipment and related instrumentation, much of which is computer controlled. Oakland University possesses outstanding applied optics facilities, which will enable participants to work with the modern instrumentation. In addition, the very latest equipment available will be borrowed from manufacturers and suppliers and set-up in Oakland's laboratories for participant use. As a follow-on effort, the investigators will assist the participants to implement applied optics programs and laboratory experiments at their home institutions.